Upgrade of Laboratory Instruction

9351779 Durojaiye Laboratories in Experimental Biology, Microbiology, and Physiology are upgraded by addition of a Controlled Environment Chamber. The equipment allows undergraduates to learn and conduct experiments/research in a low temperature environment. The equipment improves the entire Biology Department's curriculum by creating an environment whereby experiments can be performed that supplement regular lectures and computer aided instructions. The project benefits over 1,200 students enrolled in biological courses at Morris Brown College and other students that are involved in cross-registration in these science courses. The techniques learned, from using this equipment, provide a firm foundation for the under-represented minority groups seeking advanced training in the biological sciences. ***